Collaborative Research: SaTC: CORE: Small: Targeting Challenges in Computational Disinformation Research to Enhance Attribution, Detection, and Explanation

The proliferation of social media platforms has significantly accelerated data transmission rates and enabled instantaneous, global communications. Low barriers to entry facilitate expansive user participation and prolonged engagement, creating complex digital environments where diverse actors introduce highly varied and competing narratives to shape public discourse. Varied information quality, unverified content flows, and asymmetric data integrity increasingly challenge the capacity of online networks to function as optimized channels for high-fidelity communication. As anomalous information cascades diffuse through these networks, they can induce systemic fragmentation. Consequently, it is critical to analyze the structural underpinnings of information ecosystems and systematically investigate methods to optimize network resilience, balancing the demands for open information access against system security and data validation.

This project aims to study the fundamental dynamics of digital information flows and develop a computational framework to trace data provenance and classify content structural attributes. The research introduces a systematic computational framework addressing core challenges in data origin tracking, sparse data environments, and model explainability within complex networks. By synthesizing interdisciplinary communication theories with advanced computational algorithms, the framework assists system administrators, researchers, and platform participants in evaluating information validity. Project outcomes advance state-of-the-art methodology through style-based and graph-based optimization algorithms designed to identify network sources and structural signatures. Furthermore, it introduces data-efficient classification models that leverage multimodal data and high-level social contextual relations, alongside interpretable analytical techniques rooted in cognitive and psychological frameworks to enable human-in-the-loop validation and reasoning. More broadly, this work contributes foundational methodologies to data mining, machine learning, graph mining, and natural language processing, while enriching social science research regarding network credibility, systemic transparency, and information ecosystem sustainability.